Equipment for Automatic, High-Speed Digitization of Data from the Carnegie-DTM Broadband Seismic Network

This project will result in the construction of an automatic digital playback system for retrieving event data from 17 years of analog data tapes from the Carnegie Institution.Department of Terrestrial Magnetism broad.band seismometer network. The seven instrument network produces broad.band (0.008 to 30 Hz), high.dynamic range (160 db) recordings of seismic events. Automatic digitization of the analog tapes will require: (1) a mechanical playback system with ultra low-noise electronics, and (2) a high-speed workstation with real-time response sufficient to digitize and acquire data at a rate of a million samples per second. Hardware and software implementation of the playback system will be accomplished in six months, and digitization of the tape library will take an additional year. When completed, this archive will represent the largest source of digital broad-band seismic data available and will be a valuable resource for the seismological community in its studies of the interior structure of the Earth.